U.S.-India Cooperative Science Program: Binational Workshopon Galaxy Distribution Functions, Pune, India, December 1992Award in Indian and U.S. Currencies

Description: This proposal is for group travel to a small binational workshop on: "Galaxy Distribution Functions" to be held at the Inter-University Centre for Astronomy and Astrophysics(IUCAA), Pune, December 1992. Professors S.M. Chitre, of the Tata Institute of Fundamental Research in Bombay and W. Saslaw of the University of Virginia are the principal organizers. Galaxy distribution functions are important for understanding the large scale structure of matter in the Universe. Gravity is a primary influence on this distribution but despite its long history, the mutual interaction of large numbers of gravitating objects is a difficult problem and progress in areas relevant to galaxy clustering is very recent. Progress has resulted from a combination of analytic physical theory, computer N-body simulation, and astronomical observations. These problems, along with closely related areas of physics and related statistical descriptions, will be the main topics of the workshop. Scope: Principal objectives of the workshop are to review recent results related to galaxy distribution functions and to coordinate future collaborations between Indian and Western astrophysicists studying large scale structure of the Universe. There has been considerable research activity in this field and increasing interest among Indian astronomers resident abroad in observing and analyzing galaxy distributions. Exposure of the Indian scientists and students to recent developments will be significant for the course of research on extra-galactic physics in India. The workshop is particularly timely since it will soon be possible to obtain observational data from the new Giant Meterwave Radio Telescope under construction near Pune.